Rose State College Cyber Security Scholarship Program

The Rose State College NSF Scholarships in Science, Technology, Engineering, and Mathematics (S-STEM) program is awarding scholarships to students pursuing an Associate in Science degree with a Cyber Security Option who demonstrate both academic potential and financial need. Scholars are being organized into cohorts, which are being supported by activities such as tutoring, study sessions, mentoring, peer support groups, career counseling, service-learning opportunities, and transfer assistance.